Workshop on the Interface of Probability and Number Theory

A Workshop on the Interface of Probability and Number Theory will be held at the University of Illinois at Urbana-Champaign on May 19-20, 2000. The workshop will provide a unique and unprecedented opportunity for researchers from the number theory and the probability communities to meet and exchange ideas. This workshop is expected to stimulate collaboration between number theorists and probabilists and foster research in areas of common interest. Topics to be covered in this workshop include probabilistic number theory, uniform distribution and discrepancy, probabilistic models in prime number theory, probabilistic methods in additive number theory, and probability theory on random combinatorial structures.